Theoretical Studies of Unimolecular Dissociations

The Theoretical and Computational Chemistry Program of the Chemistry Division is supporting research by Dr. Klippenstein for an investigation of unimolecular reaction rate theory. A variational statistical approach is used for dissociation reactions in which there is no barrier to the reverse recombination process. Comparison of theory with experiment is based on use of potential energy surfaces computed ab initio. %%% Understanding of the rates at which chemical reactions occurs has lagged far behind understanding of reaction energetics. Modern computational methods and new theoretical advances are now making it possible to make progress on this long-standing problem. This award is for a frontier effort in that direction.